Academic Research Infrastructure: Instrumentationand Acquisition for Improvisational Animation Research Training

9601655 Schwartz, Jacob E. Perlin, Kenneth H. New York University Academic Research Infrastructure: Instrumentation Acquisition for Improvisational Animation Research and Training This Academic Research Infrastructure award supported by the facility include: 1. Communication (simulated conferences, shared virtual worlds). 2. Education (computer guides and instructors, large-scale simulations), and 3. Entertainment (synthetic performance, role playing games). This research seeks to bring human participation more fully into a virtual environment.